Geometric Methods in the Representation Theory of Reductive Groups

A "matrix group" is a set of invertible square matrices that contains all products and inverses of its members. Typical examples include SU(2), the group of 2x2 unitary complex matrices, and O(3,R), the group of orthogonal 3x3 matrices with real entries. Broadly, the subject of “representation theory” deals with how such groups can act on a (complex) vector space via linear transformations. One can then ask what happens if we replace the complex numbers by a finite field (or the algebraic closure of a finite field). “Modular representation theory” is concerned with matrix groups with entries in such a field, acting on vector spaces over the same field. This project will apply cutting-edge tools from geometry/topology and from category theory to make new discoveries in modular representation theory. This work will draw on connections to other areas of mathematics, including algebraic geometry and mathematical physics. This grant also includes support for graduate students, and will incorporate research-training and other professional development activities.

The past few years have seen the emergence of powerful new tools for applying geometric methods to the representation theory of algebraic groups in positive characteristic, including "parity sheaves" and "Smith-Treumann localization." This project will build on these developments with projects on three different topics: (i) semiinfinite sheaves on affine flag varieties; (ii) the topology of global Schubert varieties; and (iii) Kazhdan-Lusztig cells, tensor ideals, and tilting modules. Topics (i) and (ii) both have connections to the geometric Langlands program and to number theory. Results from those two topics will serve as input to research on topic (iii), which has direct links to classical questions in representation theory.